Conference: Groups, Geometry, and Dynamics (ICM Satellite)

This award supports the ICM-2026 satellite conference entitled “Groups, Geometry, and Dynamics”, to be held at Vanderbilt University on July 13–17, 2026. This conference will bring together leading researchers and emerging scholars working at the intersection of group theory, geometry, and dynamical systems. The meeting will highlight recent developments in these fields through broadly accessible, colloquium-style lectures designed to communicate major ideas and recent progress to a wide mathematical audience.

Emphasis will be placed on the participation of graduate students, postdoctoral researchers, and other early-career mathematicians. A lightning-talk format will give junior participants an opportunity to present their work, receive feedback from a broad audience, and become integrated into the research community. By fostering interaction among senior and junior researchers and across adjacent fields, the conference is expected to stimulate new collaborations and help shape future research directions. The list of invited speakers is available at the conference web page: https://margalit.droppages.net/vcs26.